Exploratory Experiments on Direct Contact Heat Transfer

The area of direct-contact heat transfer is one of the frontiers of research in the thermal sciences. The application of this approach is however, severely handicapped because of an insufficiency of basic data. This effort, when carried out, will lead to the erection of a unique direct-contact heat exchanger facility whose existence will enable the execution of the required basic experiments.